Workshop on the Program Verifier Grand Challenge, February 21-23, 2005, Menlo Park, California

This award is co-funded by NSF and NSA to enable two linked activities, a Workshop and an IFIP Working Conference on program verification. The purpose of these activities is to develop a global-scale strategy to respond to a "grand challenge" in computer science, an industrial-strength program verifier. The Workshop and the Conference will identify advances in program specification, program analysis, verification, and related tools and techniques, in order to develop a strategy for their integration to achieve this vision. This activity is coordinated through the High Confidence Software and Systems Coordinating Group in the Federal Networking and Information Technology Research and Development Program.